Nonlinear Problems of Solid Mechanics

Antman
DMS-1008058

The investigator gives careful mathematical treatments of a
variety of dynamical and steady-state nonlinear problems for
deformable rods, shells, and three-dimensional solid bodies,
possibly in contact with moving fluids, variable temperature
fields, and electromagnetic fields. The bodies are composed of
nonlinearly elastic, plastic, viscoplastic, or
magneto-(visco-)elastic materials. In each case, properly
invariant, geometrically exact theories encompassing general
nonlinear constitutive equations are used. The goals of these
studies are to discover new nonlinear effects and new kinds of
instabilities, determine thresholds in constitutive equations
separating qualitatively different responses, determine general
classes of constitutive equations that are both physically and
mathematically natural, determine how existence, regularity, and
well-posedness depend on material behavior, contribute to the
theory of shocks and dissipative mechanisms in solids, and
develop new methods of nonlinear analysis and of effective
computation for problems of solid mechanics.

For treating the behavior of both new technological
materials and old biological materials, such as living tissue,
traditional theories, based on such simplifying assumptions as
small deformations and linear response, may well fail to capture
important physical phenomena and may, in fact, give misleading
information. E.g., the study of a specific problem for a
traditional theory may indicate that a dangerous instability
occurs in a solid body when an externally applied load or
frequency exceeds a certain threshold. An analysis of the same
problem without the simplifying assumptions may well show that a
large class of materials give rise to instabilities at thresholds
much lower than those predicted by simplified theories. Since
correctly formulated exact nonlinear problems of solid mechanics
seldom can be directly subsumed under available mathematical
theories for treating the governing equations, one purpose of
this project is to develop new mathematical techniques to handle
such problems. These techniques can treat whole ranges of
materials at one time. The results have consequences for
structures under loads (bridges, buildings, biological
structures), for control of "smart" structures, and for
micro-electro-mechanical systems (MEMs).